Connecting the New York Academy of Medicine to NSFNET

9317996 Salamon The New York Academy of Medicine has a longstanding mission to improve the health of the public by acting on broad medical issues ranging from basic biomedical research, through those issues bearing on clinical investigation, clinical medicine, health care delivery, public health activities and health policy matters. The Academy devotes special attention to defining and working toward solutions of urban health problems. In order to continue to develop useful and important new programs, the Academy must be able to provide its research and education community with access to communications and information resources. Therefore, The New York Academy of Medicine requests $30,000 for a two-year grant to establish a connection to the NSFNET. This connection will integrate the Academy's LAN into the NSFNET, and thereby provide access for all of the Academy's researchers, program developers and staff. In addition, The New York Academy of Medicine Library, a research library of national importance, would make its catalog holdings and staff expertise accessible through the Internet. The Academy Library serves as a Regional Medical Library in the National Network of Libraries of Medicine. In this role, the Academy would use the NSFNET connection to further its training and information retrieval services to 900 health science libraries in the region covering New York, New Jersey, Pennsylvania and Delaware. The connection would also make possible a project enabling ten health science libraries in the region to obtain Internet access via LIFENET. ***